Performance Analysis of Spread-Spectrum Systems

The objectives of this research are to investigate the performance of multiple access communication systems with a large number of potential users or with users generating information in bursts requiring efficient algorithms for allocating the channel capacity. Another area of research that will be pursued is that of coding for computer memories.